Sharing Our Knowledge: A Conference of Tlingit Tribes and Clans

This this award supports the travel of primarily students, Alaska Native Elders and presenters to the Sharing Our Knowledge conference, which will take place March 29-April 1, 2012 in Sitka, Alaska. The Sharing Our Knowledge conference is a large gathering of Native and Non-Native Cultural experts and scholars, scientists, clan leaders, writers, poets and artists, embracing both Western and Native American traditions of research, education, knowledge and preservation.

The organizers anticipate over 400 participants and 100 presenters including presentations on biology, traditional ecological knowledge, archaeology, linguistics, museum studies, Cultural anthropology, education, ethnohistory, humanities, and indigenous law. The conference is an opportunity for academics scholars, traditional knowledge experts, and students to share idea, findings, and methodologies with colleagues, students, members of the Native community, and the public. The invitation list is a who's who in science and traditional knowledge in the Tlingit region; however, most of the funding is to support student, Elder, and Clan Leader participation in the conference.